SURFing the Physics Lab: A NIST-NSF Partnership for AMO Physics

*** Desrosiers SURFing the Physics Lab is a NIST-NSF partnership to encourage outstanding physics students by providing research opportunities with the world-class atomic, molecular, optical and radiation physicists in the NIST Physics Laboratory. To strengthen undergraduate AMO physics curricula, the program director will work with department chairs and directors of centers of excellence to identify two or three undergraduates from each institution who are prepared for, and would benefit from, off-campus summer research in AMO physics. The selected students will spend 12 weeks engaged one-on-one with NIST physicists in projects combining quests for fundamental knowledge with direct applications to problems of national importance. Student and advisor will be paired based on background and interests. The students will live in a nearby furnished apartment complex and participate in the many NIST seminars and in a weekly SURFing the Physics Lab summer seminar series. The students will present their research in a seminar at NIST and be encouraged to participate in a scientific conference during the following year. NIST, NSF and the participating schools will share the costs for this program. Given the significant lack of diversity in the present physics work force, this program will actively seek out competitive students from under-represented groups. ***